REU: REU Supplement to Curriculum in High Performance Scientific Computing

The PIs propose to develop a 2 course sequence on high performance scientific computing for undergraduate students, together with a laboratory to support these courses. They will develop text books, manuals, and software for both courses and laboratory exercises and will attempt to disseminate these materials to other institutions via summer workshops. Five institutions have agreed to collaborate with Colorado and to offer similar courses to their own students. Laboratory facilities will include high speed workstations, graphics workstations, and an INTEL iPSC. Remote ascess to a Cray Y-MP will also be provided. This proposal has the potential to produce badly needed computational scientists to address the national needs in high performance computing.